Hydro and Stellar-Dynamical Processes in Dense Stellar Systems

ABSTRACT AST-9424416 Ostriker, Jeremiah P. This theoretical research project, directed by Dr. Ostriker, has the objective of elucidating the physical processes occurring in active and quiescent galactic nuclei. While there is general agreement that a proper model will include a dense stellar system and in all likelihood a gaseous disc and one or more massive black holes, the detailed mechanism whereby the prodigious energy output is achieved remains poorly understood. The focus of this research is not on the electrodynamics or relativistic dynamics in the vicinity of a black hole, but on the physical environment in dense stellar systems. Three related areas will be studied: (1) hydrodynamics of time-dependent accretion flows; (2) evolution of dense stellar systems; and (3) the union of the previous two subjects, i.e. physical processes in systems containing both accretion flows and dense stellar systems. ***